Classroom Experiments for Large Lecture Courses: A Wireless Solution

Economics (82)
Economics students enrolled in large lecture-based introductory courses rarely have the
opportunity to interact with course content. Because of this they do not gain a deep
understanding of the material or the ability to analyze and interpret complex economic
events. Classroom experiments have been shown to be useful in aiding student
understanding of the material. In the past these exercises have been impractical in large
courses. This project is developing wireless classroom technology to allow students in
large classes to participate in classroom experiments during the class meeting times. We
have assembled a cross-disciplinary group that is creating a learning system that is making it
possible to realize the benefits of classroom experiments in large classes. Our vision is of a
portable system composed of standard electronic handheld devices (such as PDAs) that
communicate with a laptop computer that will organize economics simulations such as
markets, public goods environments and economic games. While other researchers are
currently working on internet-based experiments, such systems do not translate to large
classes unless students complete the exercise asynchronously. The instructor has only
very limited ability to revise the game in response to student questions or suggestions.
Evaluation is a critical component of this project. We have designed a controlled
experiment to collect data on performance in a large lecture course. We are evaluating
to what extent this wireless system can improve student outcomes and reduce costs.